Research Experience for Undergraduates: Biology

This award will provide supplemental funds to support two undergraduate students for 10 week periods under the guidance of Drs. Will and Tieszen. Support is recommended.